Investigation of the use of Gamma-Ray Densitometry to Evaluate Wall Degradation and Progressive Occlusions in FireProtection Piping Systems

The objective of this project is to explore the use of gamma-ray densitometry as a method to assess the amount of blockage in a pipe of a fire protection sprinkler system. Sprinkler systems are installed at the time of construction of a building and the water in the pipes remain stagnant. As a result, oxidation and encrustation develops which will reduce the effectiveness of the sprinkler system when it is needed the most to extinguish a fire. The project will evaluate the equipment with respect to its usefulness in determining the degree of blockage in a pipe filled with water.